Mapping the Fine Structure of Earth's Inner Core with Seismic Array Data

EAR-0229103
Keith D. Koper

This project will use high frequency seismic waves recorded at
seismograph stations of the International Monitoring System (IMS)
to map and model the fine structure of Earth's inner core. The same
properties and techniques that make IMS array stations useful for
detecting and locating nuclear weapons tests make them ideal for
observing the often faint seismic phases that interact with
the inner core. Although the inner core is quite small physically
it plays a large role with respect to the geodynamo, and more
generally with respect to heat transfer within the Earth. In the
same sense that ice cores can be used to deduce past climate
fluctuations it may be possible to use seismic models of the fine
radial structure of the inner core to constrain the history of Earth's
magnetic field.

The data gathered from IMS stations will be processed with
standard array techniques such as beamforming, fk analysis, and
phase-weighted stacking to observe core reflections (ScP, PcP,
PKiKP, SKiKP) and refractions (PKPbc, PKPdf). Relative properties
among phases recorded on the same seismogram will be used to
mitigate the effect of shallow structure. Specific research
targets include using PcP/PKiKP amplitude ratios to constrain
the shear velocity at the top of the inner core and the density
jump across the inner core-outer core boundary (ICB), modeling
precritical PKiKP phases to constrain the thickness of the ICB,
evaluating the hypothesis of an anisotropic discontinuity beneath
the ICB using quasi-polar PKPbc and PKPdf phases, and evaluating
the inner-core scattering hypothesis by analyzing the coda
of precritical PKiKP phases in the transparent zone.
--